MGR Honorable Mention: Lisa Ordonez

This special award will give Ph.D student Lisa Ordonez additional flexibility in pursuing her graduate studies and research initiation in cognitive research. This award will strengthen minority participation in research in this area.